The Franklin Air Show

The Franklin Institute Science Museum will develop, install and evaluate "The Franklin Air Show," a 5,000-sq. ft. interactive, permanent exhibition that explores the science and technology of aviation and aeronautics. Taking advantage of nationwide interest in the 100th anniversary of powered flight occurring in 2003, and the institute's collection of Wright Brothers Aeronautical Collection (including a restored 1911 Model B Flyer), "The Franklin Air Show" presents aviation and aeronautical technology as a vehicle for demonstrating basic science principles and the practical application of scientific and technical knowledge through invention, innovation and design. To extend the reach of "The Franklin Air Show," the Institute will disseminate parent and teacher curriculum guides through partnerships with the American Association of Physics Teachers and the Federal Aviation Administration. The exhibit is supported by innovative World Wide Web programming on The Franklin Institute Online, including "Flights if Inspiration" and digitized artifacts from the Wright collection.